Workshop on Non-Neutral Plasmas

This award provides support for travel for students and postdocs to attend the Workshop on Non-neutral Plasma Physics to be held in Boulder, CO, July 29-August 1, 1997. This workshop is the third in a series that began in 1988. The program includes both invited talks and poster sessions on a variety of topics of current interest in plasma physics, including ion traps, positron plasmas, and dusty plasmas. Student attendees are selected on the basis of an abstract submitted for a presentation at the conference.